Chapman Conference on Magnetic Helicity in Space and Laboratory Plasmas; Boulder, Colorado; July 28-31, 1998

The American Geophysical Union is sponsoring another Chapman Conference in July, 1998. This conference centers on magnetic helicity in space and laboratory plasmas, bringing a broad spectrum of theorists and experimenters in laboratory plasmas, interplanetary space, the Sun and other stars, and the galaxy. The conference will, however, primarily focus on solar and solar-related questions.